New Directions in Clock Synchronous Fault Tolerant Computing

9361776 Adams This project will develop a new architectural approach for insuring synchronization and determinacy that will make clock synchronous fault tolerant systems modular and capable of utilizing industry standard busses and off-the-shelf cards. These architectural innovations will utilize the organizations experience in designing, integrating, testing and fielding both synchronous and non-synchronous fault tolerant systems. Clock synchronous fault-tolerant systems are more efficient and easier to program than their loosely synchronized counterparts. An architectural approach and implementation that alleviates the characteristic inflexibility of this type system will be highly marketable in the current fault tolerant computing market. ***